Trapped Particle Instability Studies

Research into trapped particle instabilities is a difficult area for experimental study because both ions and electrons are involved. A specialized small experimental chamber has provided insight into mechanisms of growth of instabilities in plasmas. The research results both experimentally and theoretically now indicate that feedback systems working in the relatively cool portions of the plasma might be feasible. This concept is being examined more carefully by additional research.